Shape Analysis of 3-Dimensional Computed Carpal Models

This ROW planning grant is to use shape descriptors to characterize the bones of the wrist. Finding a new way to "mark" abstract shapes for eventual characterization is intriguing, and may have general application in the area of image analysis.